SBIR Phase I: A Novel Engine for Dramatically Improved Efficiency in a Geothermal-CSP Hybrid

This SBIR Phase I project will demonstrate that a novel thermodynamic cycle could enable a 50% improvement in conversion efficiency from geothermal and concentrated solar sources when the two are synergistically combined.

The broader/commercial impact of the proposed project could be as much as a 50% improvement in system efficiency and the enabling of a new paradigm for geothermal and concentrated solar power.